Adaptive Resource Management for IP/ATM Hybrid Switching Systems

IP traffic is becoming the killer application for ATM networks. One challenge in current network research is how to effectively transport IP traffic over ATM networks. IP was independently developed on basis of connectionless model, while ATM was originally designed for connection-oriented services. IP traffic is usually switched using packet software-forwarding technology, which is expensive and has substantially limited forwarding capacity. In contrast, ATM switches are designed with high transmission bandwidth, but having limited connection setup processing capacity due to its complex signalling structure developed for connection-oriented services. The proposed research addresses a fundamental problem in resource management for hybrid switching systems. Such systems aim at efficiently transporting layer 3 connectionless IP traffic over layer 2 connection-oriented ATM switching fabrics. The hybrid switching technology is further classified into flow-driven switching and topology-driven switching. The idea behind the flow-based hybrid switching is first to decompose individual IP packet streams into flows and then to classify them into short-lived flows and long-lived flows. While the short-lived flows are best forwarded by the embedded software through permanent virtual connections (PVC), the long-lived flows are more effectively transmitted by hardware through to-be-established switched virtual connections (SVC). Clearly, the key issue in such a flow-based hybrid switching system is the design of an on-line flow classification scheme, which can effectively utilize the constrained system resources to achieve the maximum throughput performance. In contrast, the topology-driven switching establishes switch connections based on current network routing information, i.e., associated with routing table entries rather than individual flows. Hence, no software forwarding is required if the arriving packets can be mapped into such pre-established switched conne ctions. The key issues in such a topology-based hybrid switching system are related to routing scalability, connection-setup initiation and traffic merge. The first part of our proposal will consider the flow classification design in flow-based hybrid switching systems, such as IP switching and MPOA. Unlike the traditional emphasis on resources such as link bandwidth and cell buffer size, our proposal focuses on the resources which are directly associated with packet processing power, signaling capacity and routing table size. Our study indicates that the presently available {\it static flow classification} methods have a vital shortcoming in balancing the utilization of the system's resources. This is due to the various system design strategies for allocating resources as well as the time varying traffic characteristics. As a consequence, hybrid switching system can end up operating in a highly unbalanced mode where some resources are significantly underloaded while others are heavily overloaded, causing substantial inefficiencies in network performance. We propose a novel approach for {\it adaptive flow classification} which can balance the utilization of system resources to match the time varying traffic characteristics. The proposed flow adaptation is formulated as a stochastic control problem, where the stochastic control framework can be applied towards the development of efficient and stable flow adaptation algorithms. Our preliminary studies for this proposal show the viability of the proposed flow adaptation for dynamic resource management in hybrid switching system design. Due to its great impact on system performance, we propose to carry out further theoretical analysis, algorithm development and simulation study for flow adaptation mechanisms. The second part of our proposed research will focus on the development of an unified modeling technique for performance comparison study between the flow-driven and topology-driven switching tech nologies. One of the most challenging issues in networking field today is to decide which of these two switching technologies should be adopted. The success of proposed research is expected to have a substantial technical impact on the selection of the next generation switching technologies and also the design and resource management of such IP/ATM hybrid switching systems. Please visit http://www.ece.utexas.edu/~sanqi/NSF.html for further information.